Efficient Data Removal Under High-dimensional Asymptotics with Applications to Risk Estimation and Machine Unlearning

The rapid expansion of machine learning (ML) and artificial intelligence (AI) has created an urgent need for tools that enhance trust, and control over these technologies. This project aims to address that need by developing methods that help explain why a model makes certain predictions, improve model tuning, and detect harmful or misleading data—such as intentionally corrupted inputs introduced by adversaries—before they compromise the model’s reliability. A promising strategy for tackling these challenges is to analyze the impact of individual data points or subsets of data by estimating how their removal affects the model’s behavior. This research supports the national interest by advancing scientific understanding of AI, improving the robustness of decision-making systems, and contributing to the development of technologies that align with privacy protections.

The project investigates whether it is possible to develop computationally efficient algorithms that approximate the output of a model trained without a given subset of data, without having to retrain the model from scratch. This question is particularly challenging in high-dimensional settings, where the number of features is large relative to the sample size. The project focuses on designing data removal methods that are both scalable and theoretically sound in these regimes. The resulting algorithms will be evaluated in two important application areas: risk estimation and machine unlearning. Through this work, the project aims to lay the foundation for practical tools that improve model interpretability and accountability in complex learning systems.